Investigations on Transport Phenomena Governing Interfacial Bonding Evolution in Thermoplastic Composites

Thermoplastic-matrix composites are fabricated by incrementally stacking and
fusion-bonding layers of fiber-reinforced thermoplastic prepreg tapes to a
desired shape and thickness. The evolution of interlaminar bond strength---a
principal product quality measure---is governed by the development of
interfacial contact area through flattening of the prepreg surface
asperities (referred to as the "intimate contact" process), and the
interdiffusion of polymer molecules across the contacted areas (termed
"healing"). The geometric complexities of the surface asperity structures,
and the mechanistic complexities of the strongly coupled microscale
processes of "intimate contact" and "healing" pose a fundamental challenge
to a reliable description of interfacial bonding evolution during
processing. The overall goal of the project is to overcome these
impediments. The inherent geometric complexities of the microscale will be
rendered tractable using an innovative fractal representation of surface
asperity profiles. This will form the basis of microscale transport
phenomena models to be developed for describing the asperity spreading and
polymer interdiffusion processes. A coupling of the microscale process
description with the macroscale heat and momentum transport phenomena models
will be used to elicit a comprehensive understanding of interfacial bonding
development as function of the process parameters. Complementary
experimental studies will be conducted aimed at validating the theoretical
developments.